Improving Immigration and Emigration Statistics on Scientists and Engineers

This effort represents the first comprehensive development of data for U.S. immigrant and emigrant scientists and engineers (S/E's), much-needed components of the National Science Foundation's (NSF) Scientific and Technical Personnel Data System (STPDS). The proposed work will include a survey of immigrant S/E's, verification of emigrant S/E estimates, development of a system to measure flows of both immigrant and emigrant S/E's in order to derive net immigration, and a feasibility study of non- immigrants, i.e. "visitors." Since foreign participation has become an increasingly important part of the U.S. S/E labor force, data on immigrant and emigrant S/E's have become vital to U.S. policy makers in all sectors. At present, however, these data represent the most serious data gap in the STPDS, the System which measures the numbers and characteristics of the Nation's scientists and engineers. Major components of the STPDS include: the Survey of Natural and Social Scientists and Engineers, the Survey of Recent Science and Engineering Graduates, and the Survey of Doctoral Recipients. All three surveys are conducted biennially for NSF.